The Second International Symposium on Particles, Strings and Cosmology; Boston, Massachusetts; March 25-30, 1991

The Second International Symposium on Particles, Strings and Cosmology will be held at Northeastern University. The Symposium is interdisciplinary in nature and will cover a wide range of topics in particle physics, string theory and cosmology and their interconnections. There will be both theoretical and experimental talks at the Symposium, and it is expected that there will be a scientifically very useful exchange of ideas.